Interactive Multimedia Physics Instruction in an Introductory Undergraduate Course

Recent developments in cognitive psychology, computer technology, software (including authoring programs), optical disc technology, and "hypermedia," have the potential for creating an instructional environment that is qualitatively different from the traditional one, and which provides ways of overcoming some of its curricular shortcomings. This project is developing a calculus-based introductory physics course utilizing interactive multimedia--a combination of text, pictures, diagrams, animations, sounds, and animated and/or live-action video. The grant provides eight interactive multimedia workstations, each consisting of a Macintosh SE/30 computer and a Pioneer LD 4200 Laserdisc player. These are managed by a Macintosh IICX computer which is a file server and also keeps records of student performances for use in evaluation and program development. Simulations and animations are used to help develop students' intuition and understanding of physical principles. Interactivity is emphasized. Mathematical models, including numerical methods, such as used in research and industry, are being developed. The college will match the award with an equal amount of funds.